Small County: Web-based Instruction in the Geological Characterization of Petroleum Reservoirs

Geosciences (42)

This project is developing a web-based environment for interactive instruction in the geological aspects of petroleum reservoir characterization employing a virtual subsurface closely reflecting the geological characteristics of the US mid-continent, in the fictional setting of Small County, Kansas. The virtual subsurface is fully three-dimensional, allowing interactive exploration of the model for oil and gas. The intellectual merit of this project lies in its innovative application of techniques used by the petroleum industry for educational purposes. Student learning gains are being assessed by pre- and post-tests and comparisons with previous student learning prior to the development of the model. The web interface used is logging student responses to queries, thus providing information on student understanding of the concepts being explored. These learning materials are being disseminated on the Kansas Geological Survey web site, on the 'Teach the Earth' web site, and through DLESE. Additional broader impact is being achieved through conference presentations and papers in appropriate education literature, contributing to further developments in the use of virtual environments in STEM education.